Postdoctoral Fellowship: AAPF: Snapshots of Planet Formation Around Small Stars with Keck NIRC2 Polarimetry

Briley Lewis is awarded an NSF Astronomy and Astrophysics Fellowship to carry out a program of research and education at the University of California, Santa Barbara. Lewis will contribute to cutting-edge instrumentation for the W.M. Keck Observatory in order to observe debris disks around low-mass stars in polarized light. Results from this project will advance our understanding of how planet formation occurs around smaller stars, and provide a novel observing capability for other astronomical investigations. For the educational component of this project, Lewis will create a series of planetarium shows featuring tactile resources accessible to blind and low-vision audiences for the Santa Barbara Natural History Museum. She will also develop and offer a disciplinary writing workshop series for graduate students in Physics and Astronomy.

Polarimetry is a key technology for resolving dusty disks around other stars; historically, however, high-contrast polarimetric capabilities have been mostly restricted to observing bright stars due to limitations of adaptive optics systems. The investigator will create a data processing pipeline and perform calibrations and commissioning observations for the upcoming Keck NIRC2 polarimetry upgrade, making Keck II the largest telescope on which infrared (Y to L band) polarimetry capabilities will be available. This polarimetry mode will be able to work in conjunction with the existing facility-grade laser guide star adaptive optics system to uniquely target fainter and redder stars than those accessible by other facilities. The investigator will use this mode to complete a survey of debris disks around K- and M-dwarf stars and analyze trends in their composition and morphology to inform planet formation models.